Acquisition of X-Ray Equipment for Polymer Research

9412254 This award will permit the principal investigator to acquire modern x-ray equipment that will be used for the study of polymer crystals. The University of Michigan is sharing the cost of this acquisition. %%% ***